Gravitational Wave Detection

Research will focus on systematic understanding and characterization of the instrumentation of the Laser Interferometer Gravitational Wave Observatory (LIGO). In addition to providing leadership of the LIGO Scientific Collaboration's (LSC) Detector Characterization Group, the Michigan group will carry out research in the following areas: quantitative interferometer performance characterization, analysis of instrumental transient signatures, development and implementation of alternative interferometer control schemes, and discrimination of instrumental artifacts from true periodic sources of gravitational radiation.

Systematic detector characterization is necessary to the success of the LIGO Project, a search for gravitational radiation from astrophysical sources. The discovery of gravitational waves will open up an entirely new and unique window complementary to the electromagnetic spectrum for studying the most violent processes in the universe. It will be possible to use this new spectrum to study the formation of black holes from neutron star collisions, supernovae explosions, and the rotational dynamics of neutron stars. In order to carry out these studies and to exclude false signals, it is necessary to understand the sensitivity and noise levels of the interferometer detectors in fine detail. The research to be carried out under this award in the next three years will be important at this critical development phase of gravitational
wave astrophysics.